NSF Minority Graduate Student Travel Award

This action funds a travel award to a minority graduate student to visit the laboratory of Dr. M. Schwartzman at New York Medical College for the purpose of selecting a postdoctoral mentor.